Mathematics for Indians Summer Horizon Institute (MISHI)

9352979 Karnawat Turtle Mountain Community College will conduct a four week summer commuter project in mathematics for thirty Native American high school students. Participants will learn to apply mathematical ideas to engineering design. Problems relevant to local industry and the reservation will be studied using techniques from probability and statistics. The TI-82 graphing calculator will be employed to analyze data. Emphasis will be given to those problems that are relevant to the Chippewa culture. Field trips to local universities and 9 Saturday follow-up meetings complete the program. ***